Workshop on Higher-Order Operational Techniques in Semantics (HOOTS II): Stanford, CA; December 8-12, 1997

9714102 This project sponsors a Workshop on Higher-Order Operational Techniques in Semantics (HOOTS II) held at Stanford during December 8-12, 1997. The workshop provides an opportunity for researchers working on various techniques based on operational semantics for reasoning about higher-order programs to work together to gain an in-depth understanding of the full spectrum of existing techniques, including those outside their immediate area of expertise. The workshop builds on the preliminary exchange of ideas promoted by HOOTS I, which took place at the Isaac Newton Institute for Mathematical Sciences in Cambridge, England, October 1995. The structure is that of a working meeting rather than a forum for presenting technical papers and includes a mix of activities. The workshop will result in progress towards a richer and more elegant framework for operational techniques to a wider range of languages using combined expertise of the participants in diverse areas of specialization. ***